MFAI: Foundations For Discovering Higher-Order Scientific Laws With Deep Learning

Many physical systems -- from molecules to galaxies -- are driven by interactions among their components: chemical interactions between atoms in a molecule, functional interactions between brain regions, gravitational interactions between stars in galaxies. In artificial intelligence (AI) for science, these physical relations are often modeled with graphs, allowing Graph Neural Networks to extract key insights, like predicting the solubility of a molecule from its structure or predicting cosmological parameters from N-body simulations of the universe. However, physical systems also involve richer, higher-order interactions of varying strengths that extend beyond the pairwise relations typically modeled by graphs. Consider molecules: graphs capture atoms as nodes and covalent bonds as edges, but they miss higher-order structures such as carbon rings, functional groups, and weak non-covalent forces. Ignoring these interactions leaves an incomplete picture of molecular dynamics in structural biology. In other scientific fields, the challenge is even greater. It is not only that higher-order interactions are not represented, but that the physical laws governing them remain undiscovered. What novel scientific insights might emerge if we could systematically uncover the role of higher-order interactions? Could we discover which interactions matter for a given physical system, at what scale, and unlock an entirely new chapter of scientific discovery?

The main difficulty in answering these questions is the combinatorial explosion inherent in studying higher-order interactions. This Mathematical Foundations of Artificial Intelligence (MFAI) project will define foundations of higher-order extensions of graph neural networks to tackle this challenge with a deep learning approach. The team will build these foundations by integrating two recent advances: Topological Neural Networks, which model higher-order interactions beyond pairwise relations; and Kolmogorov Arnold Networks, which can recover analytical equations from data. The three Aims provide the mathematical foundations explaining existing empirical results obtained by the team—providing provable guarantees of expressivity, scaling to large systems, interpretability, and robustness. These foundations will equip scientists with the necessary theory to enable the discovery of reliable, interpretable, equation-based models across physics, biology, and neuroscience via deep learning.